Mathematics/Science Young Scholars Program

9554451 Johnson Syracuse University will initiate a 4-week, summer residential, Young Scholars project in interdisciplinary science and mathematics for 50 economically disadvantaged students from New York State entering grade 8. The program will provide high ability and high potential middle school student with early experiences in mathematical problem solving, laboratory science, computer science, and research in a highly charged environment. The summer component combines course work with extensive laboratory and research experience, and includes field trips designed to increase students' interest and awareness of research career paths. Academic year follow-up activities include an extension of activities and research in which the students were involved during the summer.